Dissertation Research : The Nutritional Context of Hunting Decisions in the Bosawas Biosphere Reserve, Nicaragua

Apart from deforestation, the over-hunting of game species is
considered the greatest threat to tropical biodiversity. Much of this
hunting is conducted by rural people who rely on hunted game to meet their
daily subsistence needs. This dissertation research by a cultural
anthropologist at Penn State University examines the economic, nutritional,
and environmental effects on hunting decisions in the Bosawas Biosphere
Reserve, Nicaragua. The researcher will accompany indigenous Mayangna and
Miskito hunters on their forays into the forest, and local field assistants
will concurrently collect data on unobserved hunts and alternative economic
activities. These data will be used to test hypotheses about the ways in
which hunters respond to household needs, climatic fluctuations, and
wildlife abundance. In addition to furthering the education and training
of a young social scientist, this project will contribute to theoretical
issues in human ecology, particularly issues related to human adaptive
strategies in tropical rain forest environments.
Broader impacts: This research has practical applications for
conservationist agendas throughout Latin America. Results of this research
will enhance the feasibility of scientifically-based wildlife management
plans for rain forest inhabitants, thereby promoting the long-term
conservation of tropical forest ecosystems.